Institute in Parallel Computing for FY 1989, 1990, and 1991

This award supports two-week institutes in parallel computing, one in 1989 and one in 1990. The objective is to give approximately 25 graduate and post-doctoral researchers each year a fundamental understanding of parallel computing. There will be a series of lectures on topics including parallel architectures for scientific computation, software tools to aid in implementing parallel algorithms, use of graphics representations in the construction of parallel programs, and vectorization. Participants will then experiment with test problems and with a specific application that they have brought with them to the institute. Ample time will be provided on the diverse multiprocessors in Argonne`s Advanced Computing Research Facility. Some class time will also be spent discussing the communications facilities available for local and remote access to these machines. The institutes will provide an excellent opportunity for university researchers to acquire knowledge and experience in the area of parallel computing. After the institutes are over, researchers will continue to use the machines in the Advanced Computing Research Facility to conduct experiments in parallel computing. Thus the institutes will have the long-term benefit of increased understanding of the applications for which specific computer architectures are best suited. Two institutes of this kind have already been held, one in September 1987, the other in September 1988. These institutes were viewed as an outstanding success by both staff and participants.